Research Equipment Grant: Reactive Ion Etching for Device Fabrication and Materials Studies

9500033 Snider A reactive ion etch system will be purchased to provide a versatile dry etch capability spurring interdisciplinary research involving several department. ***